ASM: Multi-Sensory Control of Tracking Behavior in Weakly Electric Fish

Project Abstract
ASM: Multi-Sensory Control of Tracking Behavior in Weakly Electric Fish
PI: Noah J. Cowan, Dept. of Mechanical Engineering, Johns Hopkins University
Co-PI: Eric S. Fortune, Dept. of Psychological and Brain Sciences, Johns Hopkins University
Intellectual Merit- A tightly integrated and multidisciplinary approach using a uniquely
suited model system will help answer a fundamental question in sensorimotor
integration: how is information processed by the nervous system to control locomotion?
In the model system, weakly electric fish robustly and naturally swim back and forth
to stabilize visual and/or electrosensory images, just as humans smoothly track moving
objects with their eyes to stabilize visual images. This collaborative work builds on the
strengths of the PI, a modeler of sensorimotor locomotion systems and the Co-PI, an
organismal sensory neurobiologist.
The approach incorporates mathematical modeling, behavioral experiments, and
neurophysiological analyses. A mathematical model of the tracking behavior makes
specific, testable predictions of both behavior and neural processing. The model's
predictions of behavior will be tested by systematically varying visual and
electrosensory information available to the fish for tracking a moving sensory
image. The model's predictions will also be tested using central nervous system
recordings in awake, behaving animals. The stimuli will include signals identical
to those used for behavioral experiments, whose input-output relations are
predictable from the model. Broader Impacts Undergraduate and graduate trainees
will receive multidisciplinary training in neuroscience, experimental design, data
collection and analysis, and computational modeling. Further, we will co-teach a
new undergraduate course in sensor-based animal locomotion, and a companion
graduate seminar. Finally, the study of sensorimotor animal behaviors has great
potential to inspire novel strategies for autonomous control in artificial systems.